Exploratory Visit to Yakut Science Center, Academy of Sciences of the USSR, to Discuss Joint Research on Tectonicsof Northeast Siberia

The purpose of this travel award is to allow three American specialists in the tectonics of extreme northern regions - Dr. Kazuya Fujita of Michigan State University and Drs. John N. Davies and David B. Stone of the University of Alaska at Fairbanks - to visit the U.S.S.R. in July 1990 to determine the feasibility of conducting long-term U.S.-U.S.S.R. coopera- tive research on tectonic rifting and deformational processes in northeastern Siberia. The lead Soviet institution, the Institute of Geology of the Siberian Division (Yakut Branch) of the Soviet Academy of Sciences in Yakutsk, has arranged for the American team to make a field trip to one of the potential research sites along the remote Indigirka river. In addition to offering the opportunity of visiting previously inaccessible research sites, this study could result in seismological and paleomagnetic data that could be invaluable in supporting or invalidating current models of the tectonic evolution of the Arctic. This project fulfills the program objective of advancing scientific knowledge by enabling leading researchers in the United States and the U.S.S.R. to combine complementary efforts and capabilities in areas of strong mutual interest and competence in the field of basic scientific research on the basis of equality, reciprocity, and mutuality of benefit.